Faculty Development Workshops: PSP and TSPi

Computer Science (31)
This projects provides funding for faculty to participate in workshops on the Personal Software Process and the Team Software Process leading to enhanced ability to teach these software engineering methodologies to undergraduate students. The workshops are a joint activity of Southern Polytechnic State University and the Software Engineering Institute of Carnegie Mellon University. The funding is used to support faculty who otherwise would not be able to attend.